Coming Together around Data, a PI Project Meeting for DataNet and INTEROP

This is a proposal for a Principle Investigators meeting for the DataNet and INTEROP programs. Often, PI communities that evolve within two related yet distinct programs can become partitioned in both their thinking and their interactions along strictly programmatic boundaries. The meeting proposes to use the unifying theme of the participants common passion for data to transcend these boundaries and create new collaborative networks to better explore the challenges in data management, data preservation, and interoperability. Meetings with this unconventional venue provide open and creative conversations to expose and accentuate the group's collective knowledge, allow for a sharing of ideas and insights, and let participants gain a deeper understanding of the challenging issues involved.